Group Travel for U.S. Participants in the 14th Congress of the International Primatological Society, Strasbourg, France, August 16-21, 1992

Funds are provided for partial support of the travel of about 20 U.S. participants in the 14th Congress of the International Primatological Society (IPS), to be held in Strasbourg, France, on August 16-21, 1992. The IPS is an international, interdisciplinary society of scientists who study nonhuman primates. The aims of the IPS are to encourage all areas of primate research, to facilitate cooperation among workers of all nationalities who are engaged in such research, and to promote the conservation and judicious scientific use of nonhuman primates throughout the world. The IPS has approximately 1,000 active members in North and South America, Europe, Asia, and Africa. The scheduled scientific program of the 14th Congress includes plenary lectures, symposia, paper sessions, workshops, and exhibits. In addition, there are a business meeting of the general membership, meetings of the Executive Committee, and numerous opportunities for informal exchange among the membership.